20 Years of SUGRA and Search for SUSY and Unification Conference; Northeastern University; Boston, MA; March 17-20, 2003

This proposal is a request for support to help cover the costs of organizing the conference "20 Years of SUGRA". It will take place from March 17-20, 2003 in Boston Massachusetts on the Northeastern University Campus. The funds will be used entirely to support graduate students, Post-docs and junior faculty who otherwise could not afford to attend the meeting.